Existence, Regularity, and Behavior of Solutions to Kinetic Equations

A collisionless plasma is a fully ionized gas in which electromagnetic forces are
strong enough to dominate collisional effects. The motion of a high temperature,
low density collisionless plasma is described by the Vlasov-Maxwell equations, a
nonlinear system of hyperbolic partial differential equations. In this setting
collisions are neglected while the charge and current densities, which drive the
Maxwell system, are determined in a self-consistent manner from velocity
moments of solutions to the Vlasov equation. The major question to be studied is
this: are there shocks in a collisionless plasma? That is, could a singularity develop
from smoothly prescribed initial values as time progresses? In some cases, such as
in lower dimensional, relativistic formulations (e.g., one space and two velocity
variables), smooth global solutions are known to exist. Another problem to be
investigated concerns the long-time behavior of the charge and current densities
and electromagnetic fields in the system. More specifically, do dispersive effects
in the equations cause these quantities to decay over time, or is there sufficient
interaction so as to sustain their strength even as time tends to infinity?

Kinetic Theory includes the study of the motion and properties of plasma. Plasmas
are often referred to as the fourth state of matter (after solids, liquids and gases)
and account for 99.99% of all material in the universe. They are of great practical
interest because they are charged gases, and thus serve as excellent conductors of
electricity. As an example, plasma engines have been developed by a number of
space agencies and recently used to power some NASA spacecraft. Additionally,
the use of plasmas through nuclear fusion as a source of clean energy is currently
of immense scientific interest. Notable examples of collisionless plasmas include
the solar wind, the Earth's ionosphere, galactic nebulae, low-density fusion
reactors, and comet tails. A complete understanding of the solar wind would also
be extremely useful, as this natural phenomenon dictates the intensity of "space
weather", which is often responsible for expensive damage to satellites orbiting
the Earth. The motion of a plasma is described by a number of complicated
differential equations dictated by physics. Among the goals of the current project
are to show that these equations possess solutions (under appropriate conditions),
determine their qualitative behavior, and approximate them computationally so
that one can predict behavior in future situations with certainty.